SCIENCE ASSESSMENT: RESEARCH AND PRACTICAL APPROACHES FOR CLASSROOM TEACHERS, SCHOOL ADMINISTRATORS, AND SCHOOL DISTRICTS

Two conferences would disseminate research and best practices in the domain of science assessment. The conference presenters would be the Principal Investigators of recent NSF-funded projects that studied approaches to assessing the science understanding of pre-college students. The intended audience would be grades 3 - 12 teachers of science, science supervisors, school administrators and professional development providers. Modeled after a recent NSTA-sponsored conference entitled "The Linking of Science and Literacy in the Classroom," the proposed conference format would be a combination of plenary sessions, panel presentations and small group discussion sessions. The presenters would also contribute chapters to a book to be published following the conference, extending the dissemination to a much larger audience. An Advisory Board of assessment experts has been established to guide the conference planning process.